Individual Presidential Award for Herb Schroeder, PhD

HRD-0430112

Dr. Herb Schroeder has been on faculty at the University of Alaska at Anchorage since 1996. The PAESMEM nomination clearly lays out Dr. Schroeder's activities and his approach to mentoring that spans educational levels, emphasizes and succeeds at retention, and provides related opportunities to the local communities of indigenous people. Dr. Schroeder's extended goal is to effect systemic change in the hiring patterns of Indigenous Americans in the engineering and science professions.

The submitted nomination package is in support of a Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM) to recognize outstanding mentoring efforts or programs that enhance the participation of historically underrepresented groups in science, mathematics, and engineering.